Exotic Topology and Geometry

The research of the Principal Investigator (PI) in the last few years has
been centered mainly in
Exotic Topology and its applications to Geometry.
The (PI), in collaboration with F.T. Farrell, use exotic elements in
Topology (e.g. exotic differentiable or PL structures, non-vanishing of
the
homotopy groups of the space of pseudo-isotopies...etc) to produce results
in Differential Geometry (e.g Harmonic Maps,
Ricci Flow, Space of Metrics). A priori, these results seem difficult to
obtain without the use of the existence of exotic topological entities.
This research sheds some light on the intricate fashion in which
Topology, Geometry and Analysis are interwoven.

Paragraph #2:

Topology studies properties of objects that are preserved under
deformations. Many strange and unexpected "exotic" topological entities
were discovered in the last 50 years. We use these exotic entities to show
that certain well know analytic deformations in geometry
have limitations. These analytic deformations are analogous to
the one obtained using the Heat Equation, which rules the
distribution of heat on a body, from time zero (initial distribution) to
infinity (final equilibrium).